Research Equipment for Constitutive Properties and Benchmark Resistance of Plastics Construction Materials

Equipment will be purchased to enable the researcher to continue his studies on the mechanical, constitutive, and degradation of plastic-based construction materials. The researcher is a nationally recognized expert in several areas of research involving constitutive properties of materials.